Dynamics of Reverse Micelle Formation

Professor Zoltan A. Schelly is supported by a grant from The Physical Chemistry Program to study the dynamics of reverse micelle formation in nonpolar solvents. This research has technological importance in such industrial areas as catalysis, lubrication, corrosion prevention and biotechnology. Reverse micelles are aggregates of surfactant molecules which may spontaneously and reversibly form in nonpolar solvents such as oils. In contrast to normal micelles in aqueous solution, the polar head groups of the surfactant molecules comprise the core of reverse micelles, and the hydrophobic tails face the apolar solvent region. The polar core contains some water, referred to as the "pool", which remains even after drying the components of the solution. The current study addresses the dynamics of reverse micelle formation. Questions which are being addressed include: 1) How fast and by what sequence of elementary processes are reversed micelles formed? 2) What is the average lifetime of surfactant molecules in the aggregates? 3) How does the pool size affect the above processes? and 4) How does the rate process contribute to the stability of the aggregates? The experimental techniques employed in this study are electric field-jump and laser-induced birefrigence with real time computer data acquisition and analysis.